Neural-Immune Interactions in the Beluga Whale

An extraordinary arrangement between the Canadian Fish and Marine Mammal Management Office, Churchill native Canadian hunters, the Naval Ocean Systems Center, and the University of Rochester Department of Neurobiology and Anatomy has permitted this laboratory to obtain fresh specimens of tissue from Beluga whales taken during a sanctioned hunt. These arrangements provide the continuing opportunity to collect sufficient numbers of specimens to carry out a comprehensive study of the organization and compartmentation of the immune system, and relationships between autonomic noradrenergic nerves and specific cells of these organs. The specific focus of the present proposal is investigation of neural-immune relationships in the Beluga whale. The first Churchill field collection trip resulted in the development of protocols for optimum preservation of antigens and tissue morphology for immunocytochemical studies of the innervation of specific lymphoid compartments in secondary lymphoid organs of the Beluga whale at the light and electron microscope levels. Preliminary findings in the Beluga spleen have revealed a compartmentation of white pulp and red pulp, with distribution of lymphocytes in a periarteriolar lymphatic sheath and follicles similar to rodents and primates. Immunocytochemical staining for tyrosine hydroxylase-positive noradrenergic nerve fibers and neuropeptide-Y (NPY) nerve fibers showed abundant innervation of the white pulp, including both the vasculature and some areas of parenchymal cells. This close association between nerve fibers and lymphoid cells was further substantiated at the electron microscope level with tyrosine hydroxylase and NPY-positive nerve terminals forming synaptic-like contacts with lymphocytes and macrophages. These studies will be continued by investigating the extent to which these contacts fulfill the criteria for neurotransmission. Norepinephrine and its metabolites will be measured in freshly frozen tissue using high performance liquid chromatography with electrochemical detection (LCEC). Dissociated lymphocytes from the spleen, thymus, and lymph nodes will be used in assays for expression of adrenoceptors, particularly the beta 2 subset. Dissociated cells will also be placed in culture for studies of the effects of norepinephrine and NPY on functional assays to study a possible role for neural-immune interaction in the Beluga spleen. This project will take advantage of an extraordinary opportunity, to obtain tissues from Beluga whales killed by native Canadian hunters in officially sanctioned hunts, to study the organization of the immune system and interactions of the nervous system with the immune system in these marine mammals. A better understanding of the regulation of immune function by the nervous system is increasingly regarded as important to the understanding of the effects of stress on survival of all vertebrate animals. This unique opportunity represents the opening of a new area of basic research that should lead to a better understanding of the physiological mechanisms underlying effects of the environment on the survival of marine mammals.***